PostDoctoral Research Fellowship

This award is made as part of the FY 2020 Mathematical Sciences Postdoctoral Research Fellowships Program. Each of the fellowships supports a research and training project at a host institution in the mathematical sciences, including applications to other disciplines, under the mentorship of a sponsoring scientist. The title of the project for this fellowship to Alexander J Dunlap is "Problems related to KPZ universality and Liouville quantum gravity." The host institution for the fellowship is New York University, Courant Institute, and the sponsoring scientist is Jean-Christophe Mourrat.